Combinatorics and Representation Theory

9970119

The primary focus of this proposal is on the representations of Lie
algebras, Lie groups, Lie superalgebras, quantum enveloping
algebras, Hopf algebras, and associative
algebras of operators on combinatorial structures.
The specific topics to be investigated are
(1) down-up algebras (which generalize the algebras
coming from the down and up operators
on partially ordered sets, graphs, association schemes etc.);
(2) commuting actions; (3) Lie algebras
graded by finite root systems; (4) quantum structures
related to Lie and Jordan algebras; (5) crystal bases;
(6) Hochschild cohomology and Clifford theory.
Much of the impetus to study these subjects
comes from their close connections with combinatorics,
invariant theory, group theory, ring theory,
and solvable lattice models in mathematics, and spin models,
soliton equations, and conformal field theory in physics.

This proposal seeks to understand certain sets
having a partial order (one object in the set
may be less than another or the objects may not be related).
The down operator maps an object to the ones directly below
it and the up operator maps it to the ones directly above it.
Such operators play an important role in physics,
where they termed annihilation and creation operators.
The investigations will focus on the combinatorics
and algebraic properties of these operators and various
generalizations of them. Also to be studied are symmetries
and their related mathematics. This is an area that
has had an enormous impact on particle physics,
the study of crystals in chemistry, and mathematical
research ever since the pioneering work of mathematician
Issai Schur and physicist Hermann Weyl. Its continuing
vitality is evidenced by much current activity
and many open problems. For example, crystal
bases correspond to absolute zero temperature in
solvable lattice models in physics. Such bases
have remarkable properties. One typical
problem to be addressed is to construct such bases
when the symmetry operators exhibit certain behavior.